Partial Support for the U.S. National Committee for Rock Mechanics

9614885 The U. S. National Committee for Rock Mechanics (USNC/RM), which represents the American rock mechanics community in the United States and internationally, identifies critical issues in rock mechanics that need to be addressed, and operates under the auspices of the National Research Council's Board on Earth Sciences and Resources (BESR). The expertise, judgment, and strategic perspective of the USNC/RM serves to define and help initiate sponsored studies and other activities with respect to major areas of national interest or concern in which rock mechanics problems represent critical or limiting factors. The committee offers a forum for meetings with federal sponsors and other interested organizations to exchange ideas and information on important topics. ***